CISE Postdoctoral Research Associateships in Experimental Computer Science - Data Replication in Peer to Peer Broadcast Networks

EIA-0000516
Wolfson, Ouri
University of Illinois, Chicago

CISE Postdoctoral Associates in Experimental Computer Science: Data
Replication in Peer to Peer Broadcast Networks

A mobile computing problem that has generated a significant amount of
interest recently is data broadcasting. The problem is how to organize the
pages in a broadcast from a server to a large client population in the
dissemination of information. A strongly related problem is how to
replicate (or cache) the broadcast data in the mobile units that receive
the broadcast. Our research involves the study of the problems of
broadcast and replication in a peer-to-peer rather than client-server
architectures. These architectures are motivated by new types of emerging
wireless broadcast networks where receiving nodes may be disconnected,
turned off or out of power, and messages may be corrupted. Further,
reliable broadcasting by acknowledgment and retransmission may not be
justified due to increases in communication costs. The postdoctoral
associate will explore fundamental principles of peer-to-peer broadcast
replication: when to broadcast, what to broadcast, and the cost functions
to measure the efficiency of a given replication approach. Various
broadcast replication algorithms will be compared analytically and
experimentally and the associate will 1) design and analyze various
broadcast replication algorithms, and 2) design and conduct experiments to
compare these algorithms.